SGER - Tracing a Thermohaline Anomaly in the Tropical Circulation

ABSTRACT 0084700

Four hydrographic sections straddling the deep western boundary
current in the tropical North Atlantic will be made in an effort
to locate a rapidly propagating pulse of Labrador Sea water
traveling down the western boundary of the Atlantic. This
transient was generated when Labrador Sea water production
intensified in the late 1980's. The objective is to obtain
a quantitative estimate of the speed with which the deep ocean
conveys information about climate anomalies in high latitudes to
the tropics.